A Unified Education Curriculum for Freshman Engineers: Emphasizing Creativity and Conceptualization in ProfessionalEngineer Preparation

A unified education curriculum will be initiated at the Freshman level in the College of Engineering and Architecture at Prairie View A&M University. Four courses will be integrated into a two semester course sequence emphasizing creativity and conceptualization in the preparation of the engineering students. If successful, the results will attract and motivate students to remain in engineering.